EAGER: Exploring plasma mechanism of synthesis of graphene in arc discharge

This research concerns with exploring the fundamental role and advantages in utilization of plasmas for synthesis of graphene. Graphene is a one-atom-thick planar sheet of carbon atoms, which combines aspects of semiconductors and metals and has potential applications in the areas ranging from high-speed computer chips and biochemical sensors to ultracapacitors and fuel cells. Standard CVD methods for synthesis of graphene utilize atomic (not ionized) fluxes for synthesis. The utilization of plasma flux is being studied in this project in order to enhance the mobility and reactivity of the carbon species during the synthesis. It is anticipated that ultimate characteristics of the synthesis can be significantly improved and limitations associated with partial utilization of atomic deposition flux can be resolved when plasma-based synthesis is utilized. This research will focus on the effect of ionization degree of the graphene-creating carbon flux on properties of the synthesized graphene. To this end, an array of diagnostic techniques for monitoring of plasma parameter in a wide range of background gas pressures from high vacuum to nearly atmospheric pressures will be applied. The ultimate goal of this project will be to utilize the understanding of the fundamental role of plasmas in synthesis.

The proposed interdisciplinary project has both fundamental and technological significance. The fundamental significance is that our understanding of the fundamental role of plasmas in graphene synthesis will be greatly expanded. The technological significance lies in exploring the ultimate benefits that plasma-based methods can offer including potential creation of low-temperature graphene synthesis on a low-melt substrates such as polymers, direct graphene synthesis on surfaces characterized by with lattice mismatch with graphene such as Si wafer, significant enhancement of means to control number of layers, production rate and purity. Many important sectors of the national economy will be potentially affected. Successful development of the superior plasma-based technology of graphene synthesis would have an enormous impact on technological readiness and involvement of graphene-based transistors and stretchable/foldable electronics and therefore, on numerous sectors including aerospace, mechanical, civil, biomedical and opto-electronic industries. The proposed research program will serve as an excellent vehicle for undergraduate and graduate education in the field of nanotechnology and plasma science. The PIs will make a concerted effort to involve women and under-represented minority students in this project by working closely with corresponded student organizations at George Washington University.